Kinetic and Mechanistic Studies of Highly Reactive Species Containing Electron-Deficient Main Group Atoms, and the Synthesis of Novel Molecules

Various highly reactive intermediates will be generated and a study will be made of their reaction mechanisms. These highly reactive intermediates will be generated by photolysis and by pyrolysis of appropriate precursors. Decay kinetics of these species will be followed by time-resolved spectroscopy following laser flash photolysis. Chemical reactivity of these intermediates will be probed through trapping experiments and product studies. The molecules to be studied include species containing divalent silicon, germanium, and tin atoms, namely, silylenes, germylenes, and stannylenes, respectively. Reaction pathways for the monovalent six-valence-electron species nitrenes (R-N:) and phosphinidenes (R-P:), and of the monovalent four-valence-electron borylenes (R-B:) and aluminylidenes (R-Al:) will be compared with reaction paths for the corresponding carbenes, silylenes, and germylenes. Molecules will be synthesized with new kinds of bonds, including silicon-silicon and silicon-germanium triple bonds, and silicon-transition metal double bonds. New ring systems will be prepared as well. %%% This grant from the Organic Dynamics Program supports the continuing work of Professor Peter P. Gaspar at Washington University. Reactive intermediates will be generated that contain silicon, germanium, tin, phosphorous, aluminum, and boron atoms that have less than their normal complement of bonds. These reactive intermediates will be generated from stable precursor molecules by photolysis and by thermolysis methods. The steps by which these intermediates decompose will be studied as well as the rate at which these processes occur. More direct evidence for these reactive intermediates will be given by trapping them with other molecules. The products of these trapping experiments will reveal the structure of the intermediates. Compounds with silicon- silicon single and double bonds are known. Now even more reactive molecules will be synthesized with silicon-silicon and silicon- germanium triple bonds. New ring systems will also be prepared.